Mathematical Sciences: Prospects in Mathematics

ABSTRACT 9522056 Sinai Princeton University will host a conference "Prospects in Mathematics" on the occasion of the 250th anniversary of Princeton University. The goal of the conference will be to discuss the most promising directions for the future development of Mathematical Science. The areas to be covered include algebra and number theory; geometry; analysis; mathematical physics; and probability theory. This award will provide funding attendance for less senior people and for women and under-represented minorities. Other sources are available for support of the speakers.